Mathematical Sciences: Topics in Dynamical Systems

9306265 Hale The thrust of this proposal is to continue to develop the theory of infinite dimensional dissipative systems by the consideration of specific types of problems. For example, in Partial Differential Equations, we study the dependence of the flows upon parameters, concentrating on the boundary conditions, diffusion coefficients, dissipation coefficients and the shape of the domain. Comparison of flows defined by such equations will be restricted mostly to the global attractors. For Functional Differential Equations, we will be primarily interested in singular perturbation problems which relate the solutions to the properties of maps defined by limit equations. Many physical systems are modeled by partial differential equations defined on a bounded domain. The study of the effects of the domain (its shape, etc.) on the dynamics is of paramount importance. This is especially true if the geometric properties ofl the domain act as a control variable, as, for example, those included under lthe name lof optimal shape design, as well as others. Also, many domains are small in some directions and it is advantageous to make a reduction to a lower dimensional domain for design as well as computational purposes. The present proposal addresses questions of this type. In lazer optics and models in ecology and biology, one encounters singularly perturbed delay differential equations. In such cases, the limit equation for the singularly perturbed parameter equal to zero is mapping. We address in this proposal the relationships between the dynamics of the delay equation and the dynamics of the map. ***